RAPID: Responding to a Global Pandemic--The Role of K-12 Science Teachers

When a global health crisis emerges, students at all levels turn to their science teachers for information and, at times, reassurance, according to researchers at Horizon Research, Inc. (HRI). Science teachers serve a critically important public health function and become an important part of the nation’s response efforts. Given the magnitude of the current COVID-19 crisis, it is likely that students are bringing their questions and concerns to their science teachers. As this award is made, nearly all K–12 school buildings in the U.S. are closed, and science teachers face unprecedented challenges in carrying out the instruction for which they are responsible while simultaneously addressing students’ questions about COVID-19. Moreover, they must do this within new instructional formats. Education is crucial for helping students to understand the facts about the virus, despite much conflicting information and misinformation available. Education helps students understand and actively participate in measures to stop the spread of COVID-19. This award will support a national research study on how teachers are helping students respond to COVID-19. The findings will inform the development of curriculum materials for teaching about COVID-19, which are much needed right now, and help science teachers to adapt their instruction as they help to fulfill a critical public health function. This study will enable a better understanding of the role that science teachers can play in a national response, both now and in future crises.

The research will build on a study of science teachers conducted by HRI following the Ebola outbreak of 2014. Specifically, the research will investigate (1) where teachers of science get their information about coronavirus and COVID-19; (2) what types of resources teachers find most useful; (3) what factors influence whether science teachers address COVID-19 in their instruction; and (4) how science teachers adapt their teaching in response to COVID-19. HRI will recruit a nationally representative sample of several thousand K–12 teachers of science and invite them to complete a survey about their instruction related to COVID-19, both before school buildings closed and after. Using the Theory of Planned Behavior, the survey will be constructed to identify factors that predict whether teachers take up the topic. The survey will also collect data about how teachers address the virus and its transmission with their students. HRI will disaggregate survey data by school-, class-, student-, and teacher-level variables to identify patterns in student opportunities. Survey data will be supplemented by interviews with 50 survey respondents to gather more in-depth information related to the constructs of interest. Study findings will be immediately shared through a preliminary report that focuses on the survey data; mainstream print media using press releases; and social media partnering with the National Science Teaching Association. HRI also will publish policy briefs intended as guidance for schools, districts, and states; and research articles.

This RAPID award is made by the DRK-12 program in the Division of Research on Learning, using funds from the Coronavirus Aid, Relief, and Economic Security (CARES) Act. The Discovery Research PreK-12 program (DRK-12) seeks to significantly enhance the learning and teaching of science, technology, engineering and mathematics by preK-12 students and teachers, through the research and development of new innovations and approaches. Projects in the DRK-12 program build on fundamental research in STEM education and prior research and development efforts that provide theoretical and empirical justification for the projects.